Request for Funds for a NSF Delegation to Attend ASIATRIB2002 International Conference

0228880
Danyluk
Travel support is provided for a group of US tribologist to attend the Asian tribology conference, which is held every four years and which is named ASIATRIB. The group will include several graduate students and postdocs. The purpose of the trip is to discover the status of the field in the Asian countries, in particular in the rapidly growing industrial economies of Korea, China and Taiwan, and to explore possible areas of future collaborative research.
***